BIOCOMPLEXITY -- INCUBATION ACTIVITY - A New Biocomplexity Research Program for the Analysis of Forest Ecosystem Dynamics

0083513
Teeri
This incubation activity will lead to the development of a new biocomplexity research program. The purpose of this research program is to improve the understanding of the extent to which forest ecosystems can be managed to maximize the uptake and storage of carbon dioxide from the atmosphere. The long term goal is to determine if the uptake and storage of carbon dioxide in forests can significantly reduce the rising levels of carbon dioxide in the Earth's atmosphere. This multi-institutional research program will be built upon six existing forest carbon dioxide research programs of the AmeriFlux network. The six programs are located at: Harvard University, Indiana University, Oak Ridge National Laboratory, University of Michigan, University of Minnesota, and Yale University. A seventh institution, The Ecosystems Center at Woods Hole, will participate and provide